REU Site in Molecular Biotechnology and Genomics

The REU program at Iowa State University focuses on providing an intensive research experience for students interested in research on molecular biology, biotechnology and genomics of animals, microbes and plants. The REU site seeks to attract undergraduate students from academic institutions that serve minority populations and from small liberal arts colleges where scientific research opportunities are not readily available. Students who have finished their sophomore or junior years and who have interest in research careers will spend ten weeks on the Iowa State University campus. Students will receive a stipend, room and board, and travel to and from the Site. In addition to research, students meet together weekly for lunch and discussions on ethics, diversity, applying to graduate schools, written and oral scientific presentations, and the frontiers of biological research. Regular social events and visits to regional biotechnology companies are also scheduled. The students write up their research work for general and scientific audiences, publish their research on the program web page, and present their work at a mini-symposium for the other students, mentors, and colleagues. Undergraduate students in biological or agricultural sciences are eligible. They must be US citizens or permanent residents. Students who have completed lecture and laboratory courses in biochemistry or biology will be given preference. Women and minorities are especially encouraged to apply. For more information, students should visit http://www.reu.iastate.edu/, or contact the Program Directors: Dr. Max F. Rothschild and Dr. David J. Oliver at (515) 294-6202 or by email [email].